Mathematical Sciences: Administration of the Evaluation Process for NSF Postdoctoral Research Fellowships in the Mathematical Sciences

The American Mathematical Society (AMS) proposes that it enter into a cooperative agreement with the National Science Foundation for the purpose of administering the evaluation process of candidates for the Postdoctoral Research Fellowships in the Mathematical Sciences. The agreement would be for program years 1997-98, 1998-99, and 1999-2000 with estimated costs of $45,962, $44,557, and $45,853 respectively. The AMS, in cooperation with the NSF, has administered this program in past years, quickly, inexpensively, and successfully. Applications are received and processed at the AMS in Providence. A panel of mathematicians is selected by three societies - the AMS, SIAM (Society for Industrial and Applied Mathematics) and IMS (Institute for Mathematical Statistics). Applications are evaluated by the panel and a day-long panel meeting results in recommendations for awards.